Workshop on Symbolic Software for Mathematical Research, Rutgers University, March 11-15, 1991

A workshop will be held to bring together leading mathematicians and experts in the development of symbolic software. The goal of the workshop will be to identify areas of mathematical research which would benefit from improvements in symbolic software, to discuss the form that new software should take, and to explore the possibility of setting up a multi-national development project to produce symbolic software needed for mathematical research. The workshop will focus primarily, but not exclusively, on research in such fields of algebra as number theory, group theory, algebraic geometry, and commutative algebra. The workshop is in part a response to recommendations in a recent report to the NSF urging increased activity in the field of symbolic computation.